U.S.-Denmark Cooperative Research on Physical Properties Models for Molecules Using Computer-Aided Process Design

This award will allow Dr. John P. O'Connell, University of Florida, and one of his graduate students to collaborate with Drs. Rafiqul Gani and Aage Fredenslund, Technical University of Denmark, Lyngby, Denmark. They will use computer-aided design methods to develop and test models of physical properties of chemical compounds. Traditional methods have used specific models dealing with specific chemicals and properties. These methods are difficult and costly to use, and the models are not easily generalizable. The proposed research will try to alleviate some of the problems with past research by developing techniques and program structures which allow the use of specific models within the framework of generalized design programs. Dr. O'Connell has developed specific models for properties in specific situations, and he is an expert on theories of modern models. The Danish group is well-known for its work on more general design structures and for its large data bank of phase equilibria in vapor-liquid and liquid-liquid systems. The U.S. and Danish researchers have productively worked together and they have exchanged a number of visits. They will do much of the proposed work by telephone, but occasional visits to each others' laboratories will be necessary.